1997 NSF Project Showcase

NSF Project Showcase is an exhibition of products and findings resulting from projects sponsored by NSF's Division of Undergraduate Education and Division of Engineering Education and Centers. The exhibition is administered by ASEE. The exhibition occurs on June 16, 1997, at the 1997 ASEE Annual Conference and Exposition in Milwaukee, WI, and will consist of 20 booths in the Wisconsin Center exposition hall. Each NSF PI has their own exhibit booth and displays the results of their NSF-sponsored projects to the attendees of the conference.